The Development of a Series of Exhibits on the Perception ofSound

The Exploratorium in San Francisco will develop a new series of more than 30 permanent exhibit units on topics in sound, hearing, and music. Researchers, educators, musicians and artists will collaborate in the process, developing exhibits that provide direct involvement with science and technology using the interactive techniques for which the Exploratorium is internationally recognized. A number of the units will be using new technologies in sound and acoustics and will reflect recent research results in physiology resulting from their use. The new exhibits, augmented by refurbished and modified existing sound exhibits and accompanied by fresh graphics and explanatory text, will constitute a new theme area on sound perception, hearing and music within the Exploratorium. They will be used by more than 500,000 annual visitors to the museum and by the thousands of teachers that benefit from teacher education activities. In addition, exhibit units will be replicated in other museums through exhibit "cookbooks", workshops and sale of exhibit copies; the project will generate more than $200,000 in support from private sources.